Acquisition of A Modular Wave Tank for Fundamental and Applied Research in the New UNC Multiscale Fluid Dynamics Lab

The acquisition supported by this Major Research Instrumentation (MRI)
grant consists of a modular wave tank and related wave making and data collecting
instrumentation to be housed in the new Fluids Lab at the University of
North Carolina. The proposed modular wave tank has been designed with
maximum flexibility in mind. Much of fluid mechanics takes place across multiple scales, and their
nonlinear coupling is arguably one of the most challenging features of
theoretical and experimental science. With this instrument the team of PIs and
participants will be able to probe into phenomena, some of them newly discovered
in the existing Mathematics Fluid Lab or in field experiments by Marine Science faculty, as never
before. From mixing in stratified jets and their generation and
interaction with internal waves, to sedimentation of particles in stratified fluids and their
entrainment phenomena, to large internal solitary wave propagation from deep to
shallow topography with forcing and breaking, to boundary layer sediment
transport by surface wave motion, the host of experiments that the new instrumentation
makes possible is such as to guarantee intensive usage for many years to come.
The modularity of the new wave tank is designed so that each module can serve a different
purpose, as well as allowing simultaneous experiments to take place in the
different modules. This will optimize time sharing as well as usage of resources.

The destructive powers of water, set in motion by large natural forces, have been painfully
illustrated by the tragic events that marked the recent past. Tsunamis and
hurricane surges have taken untold lives, and cost hundreds of billions of
dollars in damage. The primary means to mitigate the effects of these uncontrollable
natural forces is accurate prediction and forecast, which in turn relies on fundamental
understanding of the physical phenomena at play. Close integration of experimental
and mathematical modelling is becoming more and more recognized as the most
successful approach to study this range of fluids problems. The proposed instrumentation
is dedicated to the study of the relevant physical processes that govern the dynamics of
water emulating these natural events, with the ultimate goal of improving predictive capabilities.
The visual appeal of fluid motion and the challenge of its mathematical modeling
will further extend the proposed instrumentation into a primary educational tool able
to attract bright undergraduate students to careers in the sciences, thereby increasing
the competency of our workforce in these fields of national interest.